Cognitive Control of Movement Sequences

How do people select patterns of movement for carrying out everyday tasks? Casual observation of people manipulating objects or walking in cluttered environments can obscure the fact that a selection process is required, for under normal circumstances people select movements without conscious deliberation even though infinitely many movements are usually possible at any given time. In approaching the problem of movement selection, a possible theory is that the actor learns to perform specific movements in specific contexts: "If the nail is so high, swing the hammer so far," and so forth. This theory is unappealing, however, because memory might not be able to store all required condition-action pairs and the actor might be unable to perform in novel situations. A preferable theory says there are a small set of constraints which limit the number or types of movements that are allowed. Identifying the smallest and most powerful set of constraints is the aim of this research. Finding such constraints will further the basic understanding of human performance and decision-making and also aid the design of robotic systems, the diagnosis of motor disorders, and the development of effective motor-skills training and retraining procedures. The research will involve two series of experiments. One will test the hypothesis that the relative contribution of an individual limb segment to movement of an end-effector (for example, the fingertip) depends on the degree of match between the optimal movement characteristics of the segment and the required movement of the end-effector. A virtue of this proposed control strategy is that each limb segment can be independently controlled. Nevertheless the collective activations of the segments can still produce graceful, coordinated movement. The detailed assumptions and predictions of the model will be tested in experiments where people will move the fingertip at varying rates over varying distances, where the relative contributions of the forearm, hand, and finger will be analyzed. Another series of experiments will be concerned with object manipulation. These experiments will identify the sources of three newly discovered phenomena concerning people's choices of hand grips when taking hold of simple objects to be moved from one location to another: (1) A strong tendency to tolerate awkward postures when first taking hold of the object for the sake of comfort at the end of the task; (2) An equally strong tendency to select movements that ensure the visibility of the target at the end of the task, even if this conflicts with the postural comfort criterion; and (3) The tendency to persist in using a particular movement pattern when that pattern has been used repeatedly in immediately preceding tasks.